COMPUTER EQUIPMENT RESEARCH PROPOSAL

A Lisp workstation will be provided for researchers at the University of Arizona for research in the Department of Computer Engineering. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of research combining simulation, artificial intelligence, and system design.